Nonlinear Optical Spectroscopy of Transient and Reactive Molecules

Professor Nibler is supported by the Experimental Physical Chemistry Program in a continuing investigation of the structures, vibrational and thermodynamic parameters, and energy dynamics of reactive and excited molecules and weakly-bound complexes. The research centers on nonpolar systems small enough to serve as good prototypes for theoretical modeling. Coherent Raman techniques are being used to study samples, including simple molecular dimers, prepared and cooled in free jet expansions. Similar detection techniques are used to detect molecular fragments photolyzed by pulsed lasers in the gas phase or in frozen argon matrices.